PYI: The Well-Founded Semantics for Logic Programs and Knowledge Bases

This project will investigate the properties of a new semantics for (possibly) unstratified logic programs and knowledge bases, called the well-founded semantics. Certain concepts have a natural expression using "unstratified" rules in a knowledge base, but have no formulation using "stratified" rules. The recently formulated well-founded semantics is defined for both "stratified" and "unstratified" logic programs and knowledge bases. Initially, the investigation will address theoretical issues that have a bearing on the usability and implementability of the semantics. These issues include the relative expressive power of the semantics, algorithms for recognizing programs (sets of rules) that can be implemented "efficiently", and algorithms for executing such programs, particularly over unstratified knowledge bases. The latter part of the project will begin implementation of prototype analyzers and translators, based on algorithms developed in the beginning of the project. Additional goals of the project will be to develop useful guidelines for logic program design and knowledge base design that ensure that all valid queries have a well-defined answer in the well-founded semantics, to explore extensions to the rule language to allow guards and set formation, and to study related issues of parallel computation.